Math Opens the Door Scholarships

Santa Fe Community college is awarding 30 scholarships annually to financially needy and academically talented students majoring in mathematics or engineering who intend to transfer to a baccalaureate degree program in one of the CSEMS eligible disciplines. The mathematics project, GatorTRAX, a program for students in grades 6 - 12 is identifying promising candidates and encouraging them to apply for a scholarship. The CSEMS scholarship is increasing the number of women and minorities enrolling in curricula designed to lead to a career in mathematics or engineering.